U. S. - Germany Cooperative Research: Investigation of Subpicosecond Dynamics of High-Temperature Superconducting Josephson Junction Structures

This award allows Roman Sobolewski to collaborate with Michael Siegel of the National Research Center (Forschungszentrum) in Juelich, Germany. The project will investigate the intrinsic dynamical properties of high-temperature superconducting Josephson junctions by experimental determination of the coupling mechanism for the junction when switched either by picosecond electrical pulses or perturbed by femtosecond-pulse optical excitations.

The ultimate goal of the research is to develop and fabricate high-temperature superconducting devices and circuits for ultrafast computing and optoelectronic links for supercomputing electronics. The research will also test the ultimate limit of the operating speed of a single-flux quantum superconducting Josephson gate.